Long & Medium Term Research: Numerical Modelling of Titan Photochemistry

Long & Medium-Term Research: Numerical Modelling of Titan Photochemistry This award recommendation is made under the Program for Long & Medium-Term Research at Foreign Centers of Excellence. The program seeks to enable U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research, and the use of unique or comple- mentary facilities, expertise and experimental conditions in foreign countries. This award will support a three month visit by Dr. Paul N. Romani to France to work with Drs. Daniel Gautier and Rgis Courtin of the Dpartement de Recherches Spatiales in Meudon on "Numerical Modelling of Titan Photochemistry." The researchers will develop a photochemical model of Titan's atmosphere by modifying an existing methane photochemical model for the outer planets. They will then use the resulting predicted mixing ratios of trace constituents (CH2, C2H2, C2H6, C2H4, C4H2, C4H3, C3H8, HCN, HC3N, and C2N2) to generate synthetic spectra and compare these against Voyager Infrared Interferometer Spectrometer and Radiometer (IRIS) observations. These species are present in only trace amounts, yet they are important for an understanding of Titan's atmosphere for several reasons: these molecules affect the thermal structure of the atmosphere, many of them are potential condensates and precursors to other condensates, and they can be used as dynamical tracers. This will be a significant improvement over the last major numerical modelling effort of Titan photochemistry because of 1) recent improved laboratory measurements necessary for photochemical modelling, and 2) the ability to directly test the model against the Voyager IRIS observations of Titan. This model- observation interaction will allow for direct testing of the importance of various chemical reaction rates, of which many still have to be estimated in the temperature region of interest for Titan, and the strength of other model parameters, e.g. eddy transport.